Travel Grant for U.S. Participants in the Seventh Japan-U.S.-China Symposium on Catalysis

ABSTRACT Edmond Ko Travel support is provided for American participants in the Seventh Japan-United States-China ("Trilateral") Symposium on Catalysis in Tokyo on July 26-28, 1995. A report of the symposium will be prepared and published in a periodical that serves the catalysis research community. ***